Distributed Shared Memories: Specification, Programming and Implementation

The project will focus on the specification, programming, and implementation of different kinds of distributed shared memories. Proof techniques and programming methodologies will be developed for dealing with the complexities in these definitions. Conditions will be developed under which programming with these weak memories has the same net effect as programming in the more familiar sequential domain. The developed methodologies will support both a posteriori as well as a priori approaches towards program design and verification. A testbed for distributed shared memories will be implemented. This testbed will function in a heterogeneous environment of a parallel machine and a high- performance local area network, and will be used for experimenting with protocols and applications from the scientific, database, and digital libraries domain. The testbed will also support distributed simulation of shared memories and architectures.